Optical Response of Semiconductors: High Precision Calculations

9306313 Levine This proposal concerns the calculation, from first principles, of the linear and non-linear optical properties of semiconductor crystals using ideas based upon band theory but in which the self- energy corrections have been included. The work, to date, has calculated the dielectric response of a range of semiconductors to high accuracy; the evaluation of the nonlinear susceptibility for second-harmonic generation in several III-V systems and the calculation of the optical activity of selenium. The proposed work will concentrate on creating a new GW code; including spin-orbit effects; studying linear and second-harmonic optical response in technologically relevant systems; intercomparing the optical properties of isolated and solid-state condensed molecular systems and studying higher response functions (eg third-harmonic generation) in silicon. %%% This proposal concerns principally materials theory; that is the direct calculation of specific materials properties - in this particular case the optical properties of insulating and semiconducting crystals. The materials of interest vary from technologically important semiconductor device-related materials (such as quartz, strained GaAs and silicon) to biologically relevant molecular crystals (such as urea). The optical properties of interest range from the linear (simple interaction) to the nonlinear (more complex interaction with light). The state-of-the- art today allows calculation of such properties to a few percent accuracy and indeed allows the prediction of optical behavior in systems which are not-yet made and/or difficult to make. Thus "materials by design" is a viable near-attainable objective for this work. ***